RUI: Supersymmetry and Quantum Field Theory

Theoretical research in elementary particle physics will concern various aspects of supersymmetric quantum field theory. This theory relates "fermions" such as quarks to "bosons" such as the particles whose exchange produces the basic forces of nature. Major thrusts will include the interplay between supersymmetry and topological charges, which are reflections of the broad shapes of physical systems, and ways in which results for supersymmetric theories yield results for non-supersymmetric theories. Supersymmetry is an attractive approach to the solution of long-standing riddles in elementary particle physics, and the thrusts of this research are regarded as promising avenues of work within supersymmetry.